Webs of Learning

There are three elements to this proposal that integrate systemic changes to the way academics are currently looked
at on the LCOOCC campus concerning STEM related coursework. Firstly, a Web of Learning curriculum will be
developed and integrated into the current curriculum structure. Secondly, a Sustainable Living Institute will be the
vehicle in which the Web of Learning model is guided, implemented and integrated. Thirdly, the primary focus of
the Sustainable Living Institute will be concentrated towards ensuring student success. These three elements will
promote a sustainable and long-lasting academic structure that will influence the way STEM is approached at
LCOOCC. Three primary goals are outlined for this grant:

Goal I: To institutionalize the concepts, issues, and technologies of sustainable living, by incorporating traditional
Ojibwa Environmental Knowledge (OEK), STEM knowledge and skills through a learning communities approach
which will improve the STEM literacy of all degree-seeking students entitled the Web of Learning Model (WOL).
Goal II: To ensure effective implementation of the Web of Learning Model (WOL), a Sustainability Living Institute
(SLI) will be developed to ensure that the its curricula promoting STEM knowledge and skills will be implemented
and applicable to student and community need based partnerships.
Goal III: The Sustainable Living Institute using the Web of Learning curricula which promotes STEM knowledge
and skills and incorporates experiential learning opportunities will facilitate, encourage and ensure student success.